U.S.-Czechoslovak Workshop on Novel Polymers for Bioengineering (December 11-14, 1990, Prague)

The primary purpose of this U.S.-Czechoslavak workshop is to bring leading polymer researchers together from both countries to examine fundamental topics pertaining to biomaterials. Specifically, discussions will feature several important polymer systems and include topics relating to synthetic methods, structural and morphological analysis (surface and bulk), and property measurement methods and results. The intended multidisciplinary interaction should stimulate follow-on basic research projects on polymeric materials with long-term potential for use in areas such as hydrogels and biodegradable polymers. This cooperative workshop in polymers research fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Eastern Europe to combine complementary talents and pool research resources in areas of strong mutual interest and competence.